netIOWA Group Grant Proposal for Connecting to the Internet

6 From: dstaudt at NOTE 3/25/94 2:15PM (1228 bytes: 27 ln) To: gclavon at nsf15 Subject: netIOWA ------------------------------- Message Contents ------------------------------- ---------------------- Original Header Lines (From NOTE) ----------------------- X-Sender: [email] Mime-Version: 1.0 Content-Type: text/plain; charset="us-ascii" ------------------------------- Message Contents ------------------------------- ABSTRACT "netIOWA Group Grant Proposal for Connecting to the Internet" netIOWA, Inc. PI: Craig Criswell NCR-9403022 This award adds five higher education institutions to the Internet through the netIOWA state network: American Institute of Business Des Moines Grand View College Des Moines Mount St. Clare College Clinton Upper Iowa Universtiy Fayette Waldorf College Forest City Faculty and students at the institutions benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years.